A Clearinghouse on Natural Hazards Research and Applications

9811388

This award is for renewed support for the Natural Hazards Information Center at the University of Colorado. The Center will continue to serve as a bridge between the hazards research and practitioner communities in the United States. The Center will monitor and disseminate hazards research information to multiple users: administrators, practitioners, policy makers, engineers, and scientists of all disciplines. The Center will publish and distribute the Natural Hazards Observer to over 14,000 subscribers six times a year; operate an electronic newsletter, Disaster Research; and disseminate information via the World Wide Web and traditional hard copy publications. An annual workshop involving users and producers of hazards research from around the country will be sponsored each year. The Center will continue to build its library data base. It will also enable researchers to conduct quick response investigations, as well as carry out a modest in-house program of research.